Contribution to 1994 Gordon Research Conference on Tribology

9411764 Fischer Supplement funding is provided to support participant speaker and graduate student travel to the 1994 Gordon Conference of Tribology, which will be held July 3-8 at the Holderness School in New Hampshire. The focus of the technical program is to develop bridges between fundamental theories and applications. ***